Condensation Phenomena in Heat Pipes and Thermosyphons

Heat pipes are devices which transport heat with only a small thermal resistance. This characteristic is the result of phase change processes--evaporation and condensation--which occur at either end of the pipe. Critical issues in the efficient operation of a heat pipe are the transport of vapor and liquid between the ends. The proposal deals with three fundamental issues which affect the operation of heat pipes: (1) the distribution of noncondensable gases and other gaseous or vapor species, (2) condensation of vapor in the wick structure that is placed in the heat pipe to facilitate liquid transfer, and (3) transient effects during start-up, shut-down, and changes in heat load. The proposed research consists of a succession of modeling efforts, each structured to include previously unaccounted phenomena. To facilitate the inclusion of these effects, the integral forms of the conservation equations will be used rather than the more complex differential forms. Experiments will be performed to support and verify the analytical predictions.